Dissertation Research: Developmental Maintenance of Evolutionary Conservatism: A Comparative and Experimental Analysis of Sphenoid Skeletogenesis in Birds and Mammals

Smith 9701104 Basic mechanisms underlying morphological conservation are not well understood. While some anatomical regions undergo major evolutionary transformations, others are resistant to change. The relations among structures in one part of the vertebrae head, the sphenoid region, have remained constant during five hundred million years of evolution despite numerous modifications in other parts of the skull. Classical comparative anatomy and contemporary molecular and cellular approaches are combined to investigate morphogenetic processes involved in pattering the sphenoid skeleton and t characterize developmental properties that may enable evolutionary conservation of this region across vertebrates. Two complementary studies are proposed. The first identifies specific elements that are important in pattering the sphenoid skeleton. Previously performed experiments such as gene knockouts, surgical manipulations, and teratogen treatments are analyzed to generate data on how perturbations to the neural tube, notochord, trigeminal nerve, and pituitary gland affect the sphenoid skeleton possess intrinsic patterning information. This involves new experimental transplantations of neural crest and mesodermal cells. This investigation 1) provides and understanding of how morphogenetic events affect skeletal patterning, 2) gives new insights on the integration of complex cranial structures, and 3) contributes important examples to the study of developmental interactions in morphological evolution.